Canada-USA Workshop on Theoretical Methods for Strongly Correlated Fermions; Montreal, Canada, May 26-30, 1999

9977084
Ruckenstein

This US-Canada workshop on theoretical methods for strongly correlated Fermions, organized by Dr. Andrei E. Ruckenstein of the Department of Physics and Astronomy of Rutgers University, and Dr. Andre-Marie Tremblay of the University of Sherbrooke, Canada, aims to give a critical overview and to assess the internal consistency and reliability of various techniques commonly used in the study of strongly correlated systems.

As such the workshop will foster communications and future collaborative research projects on topics of mutual interest among junior as well as senior North American scientists. The workshop will consist of tutorial lectures, presentations, and poster sessions.

***